On the Wing: Studies in Field Ornithology

9452735 Chopyak-Minor Keystone School Science will initiate a three-week, residential, Young Scholars Project in Ornithology for 24 students entering grades 11 and 12. The participants will be involved in activities in environmental science, biology, ecology, and ethology in the study of resident and migratory birds, while fostering a sense of stewardship toward all bird species and their habitats. The program provides hands-on laboratory experiences, field trips, and classroom instruction in ornithology.